POWRE: A Transaction Management Technique for Nomadic Multidatabases

EIA-9973465
University of Oklahoma
POWRE: A Transaction Management Technique for Nomadic Multidatabases
Gruenwald, Le

This project allows the PI to venture into the new research areas of mobile databases and mutlidatabases that are recently determined to be of extreme importance for future database research. The proposal addresses development of a pre-serialization transaction management technique for the mobile multidatabase environment that addresses disconnection and migration. Further, the PI proposes development of an analytical model and a simulation model that will be used to compare the performance of the proposed technique to that of other techniques found in the literature, and to provide guidelines to assist both users and designers.